High-Temperature Corrosion Behavior of Aluminide Intermetallics in Chlorine-Containing Environments

9818395
Cho
An experimental study will be conducted to investigate the high-temperature corrosion behavior of iron and nickel aluminides at elevated temperatures in environments, which contain oxygen and chlorine. Gas chemistry, temperature and gas flow rate will be varied. Kinetic results from thermogravimetric measurements and microstructure studies will be analyzed using a comprehensive thermodynamics approach. The corrosion mechanism will be elucidated and the corrosion process will be modeled mathematically. Attempts will be made to model the conditions of alloy composition and environment, which result in development of a protective and adhesive scale.
***